Engineering Research Equipment Grant: Instrumentation for Studies of Stress Induced Phase Transformation

Funds are provided for additional equipment and modifications for use in the study of stress induced phase transitions. The modifications will permit the study of the kinetics of phase transitions and trends toward equilibrium.